Langmuir Circulations Beneath Breaking Waves

0116921

Phillips/UIUC

The aim of this project is to study the role of mixing and vorticity
generated by breaking waves on the formation and evolution of Langmuir
circulations in the oceanic surface mixed layer. A theoretical model,
consistent with data from recent field experiments, will be developed.
This model will extend GLM theory from the weak-wave regime to a regime
in which the surface waves have a more realistic steepness and will
include a representation of vorticity injection by breaking waves. The
dynamics of the model will be explored with numerical methods. The
anticipated outcome is a better model of the development and structure
of Langmuir-cell scale vortical motions in the ocean mixed layer. If
successful, this may be useful in the development of better mixed-layer
representations in large-scale ocean and climate models.